Twentieth Fungal Genetics Conference, Asilomar, California, March 23-28, Pacific Grove, CA.

This grant is to support the participation of students in the Twentieth Fungal Genetics Conference at the Asilomar Conference Center in Asilomar, California on March 23-28, 1999. The students will participate with approximately 600 scientists and students from around the world. The conference focuses on the molecular biology, genetics, biochemistry, and cell biology of filamentous fungi. The meeting will consist of four plenary sessions, four sessions devoted to concurrent workshops in specialized areas, three poster sessions, and informal discussions. Topics to be covered in plenary sessions are: regulation of gene expression including global regulation and epigenetic phenomena, sexual and asexual differentiation, secondary metabolism, and pathogenicity, and cell biology emphasizing organelle biogenesis and transport. In the meeting, strong emphasis is placed on the participation of young scientists and students, particularly those from underrepresented groups.